"DARKENED WATERS: PROFILE OF AN OIL SPILL" -- A MUSEUM EXHIBITION

The Pratt Museum, a natural history museum in Southcentral Alaska, proposes to bring before the public an exhibition on oil pollution. Using the historic disaster of the March 1989 grounding of the Exxon Valdez, the museum presents a dramatic, grassroots story of the desperate struggle to protect the environment and preserve traditional lifestyles. The exhibit's purpose is to increase public awareness of national and global issues pertaining to the development, transportation, and use of petroleum. The 1,500 square foot presentation shows what an oil spill is like through photographs, maps, graphics, and three- dimensional participatory elements. The exhibit is scheduled to open at the Smithsonian's Museum of Natural History in early 1991, beginning a three-year tour of 12 museums that will reach between 1.5 and 2 million viewers. The NSF contribution will support the circulation of the exhibit and the development of interactive components to enhance both the permanent and traveling presentations. Computerized graphic displays and an educational chest of learning tools will enhance the basic exhibit through multi- sensory activities designed for hands-on gallery use, increasing accessibility for children and disabled visitors. This cooperative project invloves private foundations, individuals, the Environmental Protection Agency, U.S. Fish and Wildlife Service, and Alaska Department of Fish and Game.